Computer Archive Access and Analysis Tools

This award includes effort in the following areas: develop and distribute tools for monitoring archive usage, develop guidelines to determine archive value, experiment with and evaluate several funding models for computer archives, perform several case studies on various archives to evaluate the tools, and provide archive maintenance support to limit gaps in computer archive availability during the next several years. The PI runs wuarchive, the largest archive of its kind on the Internet in the U.S., and possibly in the world.